Topological complexity and quantitative o-minimality

Abstract

Award: DMS-0245628
Principal Investigator: Andrei Gabrielov

The principal investigator proposes to investigate the
topological complexity of definable sets in o-minimal structures
on the real numbers, in particular, of the real semialgebraic and
sub-Pfaffian sets. This research will be based on the new tools
for computing homology of such sets: a spectral sequence
associated with a surjective map, and the relative closure
operation on one-parametric families. The results will be
applied to the problems of quantitative o-minimality: the
complexity of topological, geometric and algebraic operations on
definable sets in o-minimal extensions of the real numbers. The
results of the proposed research will advance quantitative and
algorithmic aspects of the o-minimal theory. As a broader
impact, these results will provide a theoretical basis for
computer algorithms for operations on sparse polynomials,
exponential and trigonometric functions.

Objects defined by systems of algebraic equations and
inequalities (semi-algebraic sets) appear in many areas of
mathematics and its applications, such as control theory,
robotics, and computer-aided design. Understanding the
complexity of operations on such objects is crucial for
developing efficient computer algorithms. In many practically
important cases, polynomials in the definition of a
semi-algebraic set are sparse, i.e., have few non-zero
coefficients. Sparsity is not preserved by many natural
operations, such as projection to a subspace or closure. The
results of the proposed research would allow one to evaluate the
complexity of operations on semi-algebraic sets in terms of the
complexity of some auxiliary sets, retaining sparsity of the
original polynomials. This may drastically improve upper bounds
on the complexity of such operations, leading to more efficient,
faster computer algorithms.